Leguminosae (Fabaceae) of the United States: Lupinus

Leguminosae (Fabaceae) is the third largest family of flowering plants and includes many ecologically and economically important species. The primary goal of the PI's research program has been a unified summary of the family of the U.S. Only the genus Lupinus, the widespread and complex lupines, has not been completed. This proposal is to examine herbarium holdings to complete a monographic revision of the genus. The monograph will have widespread use by range managers, foresters, and conservationists.